X-Ray Scattering Studies of Thin Liquid Films

w:\awards\awards96\*.doc 9624055 Dutta The project employs synchrotron radiation to study the intermolecular correlations within very thin liquid films. These are a relatively easily controlled and geometrically well defined class of `confined' liquids, whose properties can be significantly different from those of bulk liquids. Systems to be studied include thin films of concentrated metal salt solutions, spreading films of viscous liquids, and wetting films on solid substrates. The structures within and normal to the film plane are to be probed as functions of film thickness, temperature, solute concentration, and applied potential. The investigations are of fundamental interest and are relevant to applications involving not only lubrication, wetting, and spreading, but also to other confined systems such as liquids in droplets, porous minerals, capillaries, and biological cells. %%% This project investigates the structural arrangement of molecules within very thin liquid films. Synchrotron radiation is used to measure the structure as it can be quite different from bulk liquids. The properties of liquids change when they are in the form of very thin films or in other `confined' geometries. The investigation is not only of basic interest but is related wetting and spreading processes (such as occur in painting or oil spills), and related industrial processes. The information obtained is likely to lead to a better understanding of the properties of other confined systems such as droplets in a cloud, oil in porous rocks, and fluids in biological cells and capillaries. ***